Engineering Study of Televiewer Possibilities for a Deep SeaWireline Re-Entry Probe

This is an ocean engineering proposal to perform a feasibility study of the integration of a borehole televiewer (BHTV) with a borehole wireline re.entry system. The proposers have received previous funding from NSF and DARPA (APL/JHU) to develop the capability to re.enter boreholes drilled into the seafloor utilizing a deep sea vehicle supported by an electromechanical cable (wireline). This proposal is to perform the preliminary engineering studiesto determine how a BHTV could be integrated into the re.entry vehicle. BHTV's are acoustic devices that scan the inner walls of drill holes. The acoustic signals are converted into imagesthat can be used to interpret the sedimentary and metamorphic layering as well as the shape of the hole (ellipticity and breakouts). These images can then be used for both scientific and operational purposes. Interpretation of the hole shape and breakouts can be used to determine stress and direction of stress within the drilled section. The status of hole condition and locations of various layers is also useful operational information since it may help to locate areas that may be in question for subsequent measurement and may indicate whether a certain toll would be useful in a particular location. In an effort to improve reliability over existing BHTV's, proposers will also investigate the basic sensor design to determine if the standard acoustic narrow beam rotating headcan be replaced by multiple, simultaneously monitored non.rotating preformed beams. If proven feasible, subsequent proposal(s) would be expected for the further design, construction and testing of the system. It boreholes with re.entry cones including those in the Atlantic and Pacific Basin.